AMS Summer Research Institute on "Smooth Ergodic Theory and Applications

This American Mathematical Society project supports a mathematical research institute during the summer of 1999. The institutes in this series bring together a group of mathematicians interested in a particular field of mathematical research. Emphasis is placed on instruction at a very high level with seminars and
lectures by distinguished mathematicians in related fields and to promote interaction between participants while broadening their mathematical perspectives.

Smooth Ergodic Theory and Applications has been selected as the topic of the 1999 Summer Research Institute by the AMS Committee on Summer Institutes and Special Symposia, whose members at the time were Michael D. Fried (chair), Robert Osserman, Jeffrey B. Rauch, Leon Takhtajan, and Ruth J. Williams.

Members of the Organizing Committee for the proposed 1999 Summer Research Institute on Smooth Ergodic Theory and Applications are Anatole Katok, Pennsylvania State University; Rafael De La Llave, University of Texas at Austin; Yakov Pesin, Pennsylvania State University; and Howard Weiss, Pennsylvania State University.

The 1999 Summer Research Institute will be held at the University of Washington, Seattle, Washington. The Society will be responsible for making suitable arrangements for lecture and seminar rooms, and for the
handling of local administrative matters. The Institute is expected to be held during a three-week period in late July and early August.